GP-IMPACT: Pathways TO RENEW: Tropical Oceanography Research Experiences for the NExt-Generation Workforce

I Non-Technical
Research opportunities and professional development are effective ways to engage undergraduate students in science and increase the likelihood that they will stay in college and graduate in four years. While research universities are likely to offer such opportunities to undergraduate students, non-research colleges and universities usually have limited ability to provide science projects for their students. To address this need, we propose to develop an educational center that will serve students at two non-research institutions in Puerto Rico. Through the center we will link students with researchers who will guide them in conducting research in Puerto Rico’s coastal lagoons. Hispanic students will be involved in a variety of activities during the summer and academic year focusing on experiential learning in the geosciences. Students will gain research experience and exposure to marine science professionals through networking, internships, and travel to national meetings. The students will also participate in geosciences professional development activities (e.g. personal statement writing, science communication, oral presentations, etc.). The center will foster partnerships among research and non-research institutions and government and non-profit institutions interested in building a sustainable and effective education center focused on Puerto Rico’s coastal lagoons. The project includes a diverse interdisciplinary team of scientists and educators from both the mainland United States and Puerto Rico. The team and center are committed to increasing marine science learning opportunities for underrepresented and underserved students.

II Technical
In an effort to close the opportunity gap and enhance STEM retention for underrepresented groups at primarily non-research colleges and universities, we will establish the Tropical Oceanography Research Training for Undergraduate Academics (TORTUGA) Center to introduce early- through advanced-stage undergraduate students from Puerto Rico to geoscience education and research. This center will link research and non-research institutions to strengthen research capacity and establish educational programs to teach research skills to undergraduates in STEM fields. Specific goals of the TORTUGA Center are to: 1) build sustainable multidisciplinary education and experiential learning programs focused on coastal science problems and solutions; 2) increase access for underrepresented students to watershed, coastal, and marine science education; 3) develop institutional structures to assist students at critical educational junctures, increase student retention in STEM fields, and encourage pursuit of geoscience careers; and 4) adapt this model and strengthen its long-term sustainability. To do this we will: 1) strengthen and expand existing cross-institutional partnerships and team science research programs we have developed over the past five years through a series of pilot projects; 2) provide research opportunities at minority-serving institutions in Puerto Rico for coastal and watershed geoscience research; and 3) evaluate and assess our educational practice model in light of our program goals and current educational pedagogy research. An anticipated outcome of this project is a set of best practices for increasing STEM retention in primarily non-research institutions serving underrepresented groups, focused largely on Puerto Rican and Hispanic populations but applicable to a broad spectrum of undergraduate experiences.